NYI: Operating Systems for Multiscale Computers

Advances in VLSI technology have made distributed systems (e.g., clusters of workstations) suitable for parallel computing. Today's software, however, limits the functionality of distributed systems. The goal of this research is to discover and evaluate techniques for (1) automatic management of locality and work distribution, (2) fault isolation, (3) high-performance communication, and (4) fair sharing in a cost-effective distributed system. The approach is based on shared objects, an exokernel-based operating systems, a user-level communication unit, and gang scheduling. The project builds an experimental distributed system that delivers performance comparable to custom-designed supercomputers, while maintaining fault isolation and fair sharing.